Investigation of Dynamics and Energetics of the Upper Equatorial Pacific Ocean using the NORPAX Shuttle Dataset

In this project, the PI, along with a post doctoral student, will study the mean momentum, heat, and eddy energy balances in the upper equatorial Pacific. Data collected during the NORPAX Hawaii-Tahiti Shuttle Experiment, which includes both velocity and hydrographic measurments, will be used. Models of the equatorial circulation will be compared, updated, and improved, using the results of the data analysis.